Amplification of Integrated Cloned Genes in Saccharomyces cerevisiae

The stabilization of cloned genes in microorganisms is extremely important for productive recombinant cell processes. The goals of this proposal include determining the extent and enhancement of amplification possible, the time-scale and frequency on which it occurs, development and study of a model system for intracellular protein production, determining the effects on the host strain, stability studies, and population modeling. Yeast retrotransposons offer a unique approach for obtaining large numbers of integrated cloned genes. The results from the research should demonstrate the potential of this unique system for the stable integrations of multiple cloned genes, a method, which in many instances, should be superior to the more commonly utilized plasmid systems.